RUI: Rare Decay Studies at the University of Richmond

This is an excellent example of a successful program at an undergraduate institution. The PI has focussed his efforts on experiments of a scale that allows his undergraduate students to participate effectively. All of the experiments are at the "sensitivity frontier" and even with a comparatively large teaching load, the PI has established leadership positions. Further, he is addressing workforce related issues by coordinating the recruitment of African - American students.